Robert Noyce Teacher Scholarship Program Capacity Building/Track 1 at the University of West Alabama

The Robert Noyce Teacher Scholarship Program at the University of West Alabama aims to address the national shortage of qualified math and science teachers particularly prevalent in rural school systems. This project will offer scholars financial aid, an accelerated path to teacher certification, and innovative strategies tailored for all students pursuing a STEM major and teacher certification. The proposed project components will enable high-achieving prospective math and science teachers to become secondary STEM teachers with extensive expertise in specialized training in STEM content, active learning instruction, Artificial Intelligence (AI) in education, and increased practical experiences to better equip them for the classroom and to enhance STEM education overall.

This project at The University of West Alabama (UWA) includes partnerships with a two-year institution; Coastal Community College; as well as collaborations with rural K-12 school districts, University Charter School and Sumter County School District both located in the highly impoverished Sumter County, Alabama. The project's overarching goals encompass 1) recruiting and certifying 35 new STEM teachers (30 scholars and 5 fellows) over five years from UWA's math and science programs with an expected 80% completion or 2) fostering a highly supportive atmosphere for aspiring educators, through mentorship by UWA math, science, and UWA-Teach expert faculty, and 3) implementing an induction program for continued development of subject matter comprehension and pedagogical practices through the Black Belt STEM Institute. The project employs a mixed-methods research methodology, combining quantitative data from surveys and databases with qualitative insights from semi-structured interviews. Key research questions include assessing the impact of project experiences on UWA STEM majors' interest in teaching as a profession and their efficacy in engaging with K-12 students. Additionally, it examines the project's success in enlisting and retaining scholars and fellows, striving for an 80-90% completion rate in meeting STEM certification requirements. Likewise, it investigates the perceived effectiveness of the induction program for its graduates. Employing a responsive evaluation model, the project adapts to evolving needs by continuously gathering and analyzing data, enabling annual reporting and necessary program adjustments. The intellectual merit lies in the model of best practices developed for recruiting, educating, and supporting all STEM teachers as they face the everyday challenges faced by not only rural schools but across the nation’s schools. The broader impact aims to elevate future generations by producing a more qualified STEM workforce, ultimately enhancing the education of children who often lack access to well-qualified educators. Subsequently, the number and caliber of students entering postsecondary institutions as STEM majors will increase, initiating a positive and sustainable cycle of support for STEM education. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.